Information Technology in the Service of Science Education

We propose to develop, test, and produce a set of educational modules that use computer and network-based resources to teach science topics in an integrated way to non-science majors. These modules will consist of hypertext documents combining text, still images, video, and sound using state-of- the-art technology. Two prototype units covering topics of a successful new two-semester course taught at Syracuse University called Science for the 21st Century have already been tested in the classroom. Advanced information-transfer technologies such as video-on-demand and simulation-on- demand will be implemented to increase active student involvement. New units will be developed to cover other important science topics, such as evolution and imaging science phenomena. The five modules will constitute an introduction to science for undergraduates who are not science majors. Each module will be self-contained and easily expandable; it will be portable since it will be delivered through the Internet or in other formats, such as CD-ROM. There will be three phases of this project: a) design and development of modules, b) implementation, testing, and assessment of modules in our course, and c) dissemination of products and training of teachers. Through this pioneering project, we hope to contribute to the process through which revolutionary information technology connects with improvements in our ability to educate our citizenry.